Evaluation of the Use of the Wavelet Transform for Anaylysisof Mechanical Transients

The main emphasis of this project is on the evaluation of wavelet transform technique as applied to the analysis of mechanical transients. Such transients are strong indicators of impending machine and machine component failure. Transients are signals which are much smaller in duration than the observation interval, and are non-periodic, non-stationary, and often non-symmetrical. The wavelet transform method is used as a powerful diagnostic tool for transient detection and classification. Typical examples include generator arcing, rubbing in journal bearings, and spills in internal combustion-engines. Significant improvements are made in the repeatability of coefficients for modulated transients, in the separability of transients using a mixed probability density function approach, in the detectability using the transform as a matched filter and using artificial neural network, and in the general performance of approach by automating the classification. In addition, tests are conducted extensively on real data. The results of this research provide an industrial tool as powerful for the analysis of transients as the spectrum analyzer is for the analysis of periodic waveforms.*** //